Microcomputers for Enhancing the Teaching of Calculus

A revitalized calculus curriculum is being implemented in a laboratory equipped with IBM PS/2 computers running MicroCalc. The graphing and numerical capabilities enable students to experiment and to improve their intuition and understanding of concepts. The institution will contribute an amount equal to the award.//